SBIR Phase I: A computational framework to mitigate protein aggregation

The broader impact/commercial potential of this Small Business Innovation Research (SBIR)
Phase I project addresses the significant and persistent challenge of protein aggregation in the
development of protein therapeutics, which can impede therapeutic efficacy and increase
manufacturing costs. Protein-based therapies hold immense promise for treating a wide range
of diseases due to their specificity and potency. However, their development is frequently
hampered by aberrant aggregation, which can lead to loss of function and immunogenic
responses. This project proposes a novel computational platform that predicts aggregation-prone
sites and, critically, suggest specific mutational mitigation strategies to stabilize proteins
without altering their therapeutic function. The successful development of this technology has
the potential to significantly reduce the time and possible cost associated with drug development,
enhancing the availability of effective treatments and supporting the health and welfare of the
population.

This Small Business Innovation Research (SBIR) Phase I project will focus on advancing a
computational platform that leverages state-of-the-art simulations and a modern
understanding of the physics of protein hydration to identify and mitigate problematic
aggregation sites in therapeutic proteins. The project aims to validate and enhance the
platform's predictive capabilities through a comprehensive analysis involving a diverse dataset
of proteins. In particular, this project will focus on developing the abilities of the technology to
identify transient protein interfaces likely to mediate aggregation and to suggest rigorous
mutational strategies to mitigate aggregation without disrupting biological function and
therapeutic efficacy. The expected outcomes include a scientifically validated tool that can
reliably predict and correct aggregation issues early in the drug development process. By
improving the stability and efficacy of biologic therapeutics, this technology has the potential to
have a significant commercial impact on the fast-growing biopharmaceutical market.